The Impact of Peer-Led Learning on Non-Traditional Students in Online Engineering Courses

This project aims to serve the national interest by identifying best practices for improving the persistence and advancement of adult and veteran students pursuing online engineering degrees. Through the introduction of peer leaders and synchronous recitation sessions, students will receive additional support beyond what is traditionally offered in online modalities. Moreover, peer-led team learning environments create safe havens where foundational math and engineering principles may be explored outside the instructor-student hierarchical structure. Learning from fellow students who recently completed the course can provide motivation, context, and example for undergraduate students, especially those from adult and veteran populations who may not be comfortable with online learning or perhaps have been out of the formal academic environment for some time. The intent of the study is to inform instructional practice that other institutions can leverage to better support non-traditional students in online programs. The project will produce a peer leader training curriculum and peer-led team learning activities for introductory engineering courses including statics, aerodynamics, and digital circuits. In identifying social and academic factors under which students’ experiences in peer-led team learning produce better academic outcomes, this project hopes to advance pedagogical approaches for additional underrepresented populations and contribute to the increasing breadth of knowledge for the online education community.

Peer-led team learning has proven to be effective in face-to-face classroom settings. The scope of the current project is to implement similar structural and pedagogical practices through development of a sustainable online model that is transferable to other institutions. Goals for this project include increasing commitment to online engineering pathways, improving student persistence and advancement in online engineering programs, and identifying and mitigating cultural and structural barriers associated with non-traditional student populations. Evidence from the study will be collected from students enrolled across multiple sections of introductory engineering courses and evaluated against control sections in developing a comprehensive set of best practices. Results will advance our understanding of peer-led team learning activities’ ability to produce both statistically significant and substantially greater gains in non-traditional students’ academic performance and identity development as part of the engineering community. The EHR program supports research and development projects to improve the effectiveness of STEM education for all students. Through the Engaged Student Learning track, the program supports the creation, exploration, and implementation of promising practices and tools.